Fourier Transform Infrared Spectrometers for Undergraduate Instructional Laboratories

Two Fourier Transform Infrared Spectrometers and required sample cells are being purchased for use in undergraduate organic chemistry, physical chemistry, structural chemistry, and integrated laboratory courses. The instruments are replacing outdated, failing equipment previously in use, allowing the conversion of the organic laboratory courses to microscale work, allowing students in the physical chemistry and integrated laboratories to obtain and analyze high-resolution IR data, and allowing students in the structural chemistry course to undertake more sophisticated identification problems than were previously feasible. The grantee is matching the award from non-Federal sources.